Using Patent Citation Data to Trace Knowledge Flows

Much economic research in the last decade has focused on the phenomenon of knowledge spillovers, by which it is meant that the externality that is created when one researcher's efforts facilitate or enhance the success of someone else's efforts. Knowledge spillovers are created in the public sector, when universities and government labs produce basic research results that provide the foundation for applied research in the private sector; they are also created in the private sector when researchers take advantage of knowledge produce by other private agents. These spillovers are key to understanding the process of technological progress, how it contributes to economic growth, and how policy levers can be used effectively to foster growth through innovation. The purpose of this research is to analyze the flows of knowledge spillovers across time, technological sectors, and geographic areas. Relevant data is already being assembled that will permit the testing of models of regional and sectorial growth incorporating knowledge spillovers. This research is important because it will increase our understanding of role of science and technology in fostering economic growth. The results of this project will also be of interest to other scholars and to science policy makers.